Epitaxial Growth of Transition Metals and Their Aluminides on Aluminum Surface

9710092 Smith The objective of this RUI research is to identify the fundamental physical parameters which determine the atomic structure of thin transition-metal films deposited on aluminum single-crystal surfaces. The experiments are designed to characterize the early stages of epitaxial growth and/or compound formation in the limit of very thin overlayers. The selected transition metals span a range of values for the mismatch in substrate-overlayer lattice structure and for the chemical formation energy of the transition-metal aluminide. The thermal stability and lattice matching characteristics of several of these aluminides make them excellent candidates for epitaxial metallization on III-V semiconductors, such as GaAs and InP. The research focuses on those systems which appear most promising for growing epitaxial structures. In addition, understanding and controlling the atomic structure of supported thin films of Fe, Co and Cr is important for tailoring the magnetic properties of these films. The measurements characterize the degree of ordered growth or substrate disruption at the interface using high-energy ion backscattering and channeling, low energy electron diffraction, and X-ray photoelectron diffraction. Core- level binding energies measured with X-ray photoemission serve to identify compound formation at the interface. Monte Carlo computer simulations, using the Embedded Atom Method for calculating total energies, serves as a guide in the structure analysis. %%% The results of this research will provide a better understanding of, and ability to predict, atomic structure at metal/metal interfaces. This area of research has great potential for contributing to microelectronic and micromagnetic devices. ***